An Ark of Questions Sent Sailing South: Poetry from Antarctica

As a particiant in the Antarctic Artists & Writers Program, the Principal Investigator, a poet, proposes to spend time with three separate Antarctic field teams in the McMurdo Station region to study the symbiosis between animals and the scientists who study them, then interpreting these relationships into poetry that she intends to publish in nationally recognized publications.